A Study of Generalization and Representations in Multilayered Connectionist Networks

This Research Initiataion Award is for theoretical investigation of generalization in artificial neural networks. Dr. Munro will study the effects of parameter variations, including use of a new "squashing function," on internal representations learned by simple multilayer networks. Advances in technique or understanding will then be tested on large-scale problems that have been reported in the literature.